Devices for High-Rate Optical Comunications

It is widely believed that integrated optoelectronic devices of gallium- arsenide semiconductors will dominate high-bit-rate optical communication systems. It is also quite likely that this dominance will extend to high speed computers and processors. This proposal should develop groundwork to answer important questions about the eventual practicality of all-optical devices for the above applications. One objective of the proposed project is to use quantum well structures in novel new device structures in order to provide new planar guided wave optics components for use in high rate data optical signal processing. A second objective will be the development of molecular beam epitaxy (MBE) grown quantum well and heterostructure waveguides devices. The primary contribution of the second objective will be the extension of quantum well based optical communications and signal processing to a longer wavelength region (1.0 to 1.6 micrometer). The PIs are considered to be extremely well qualified to carry out the proposed research and I recommend funding of this project for three years in accordance with the budge submitted with the proposal.